Applications of Atomic Absorption and Atomic Emission Spectroscopy in Undergraduate Chemistry Training

The addition of an atomic absorption spectrometer makes it possible for St. Mary's students to have hands-on exposure to the full complement of molecular and atomic spectrometric techniques. This acquisition of an atomic absorption spectrometer enables laboratory improvement through the addition of experiments requiring trace metal analysis, and essential component of analytical chemistry. Chemistry and Biology students learn applications of atomic absorption and atomic emission spectroscopy through hands-on laboratory exercises in the following courses: Instrumental Analysis, Chemistry of the Earth (geochemistry), Inorganic and Physical Chemistry, and Oceanographic Methods. Trace metal analysis of Chesapeake Bay estuarine waters, sediments and aquatic fauna by flame atomic absorption not only acquaints students with a variety of analytical techniques, but also introduces them to problems that are of current interests and importance. The institution is matching the NSF grant with an equal amount of funds.